IEEE EMBS Workshop, Virtual Reality in Medicine

9725881 Akay Virtual reality technologies are appearing in important diagnostic and treatment planning applications in medicine. With today's image processing computer workstations and PCs equipped with high end graphics programs, virtual reality technologies are capable of producing diagnostic quality images of internal organs such as the colon, and provide a sufficiently accurate depiction of the anatomy of the hip for the surgeon to use in planning a patient-specific total hip replacement procedure. The two examples noted above indicate the important potential for the use of virtual reality technologies in medicine, but additional engineering and computer science research is needed to generate the knowledge required to emulate human anatomical features in high resolution and rapid 3D image reconstruction, full color, user-friendly, and cost-effective systems. These areas of research were examined in the Virtual Reality in Medicine Workshop held as a part of the Institute of Electrical and Electronics Engineers (IEEE) Engineering in Medicine and Biology Society conference October 30-November 2, 1997. World class investigators served as faculty for the workshop, presenting state-of-the-art information about the important technologies involved in virtual reality and indicating areas where research is likely to lead to new performance capabilities. Importantly, 13 engineering students participated in the workshop and received at first hand information that could influence them to enter this area of engineering endeavor. This award provides support for partial reimbursement of travel expenses for the faculty. ***